Burstbusters Taming Weather Hazards to Aviation

The National Center for Atmospheric Research NNCAR) is developing a traveling interactive exhibit to parallel the Federal Aviation Administration's (FAA) deployment of Terminal Doppler Weather Radars (TDWR) at 47 airports across the United States. This exhibit, titled "Burstbusters Taming Weather Hazards to Aviation," will describe how the hazardous weather phenomena were identifies, how technology was utilized to create a system to detect and predict them, and how the new system will operate at airports to enhance safety and air traffic efficiency. large groups of the population not routinely exposed to science issues will be presented with this case study as an example of how public science funding can directly affect their lives. The exhibit will capitalize on this linkage to increase public literacy about the science and technology processes and to promote parental advocacy of science education for their children. Two copies of the exhibit will travel to approximately 20 airport terminals and science museums from June 1993 through September 1995.//